Surface Structural Controls on Trace Element Incorporation in Carbonates

The principal investigator will study the factors that influence trace element partitioning in crystals during growth, and particu- larly the influence of surface structure. He will concentrate on a study of calcite, utilizing a variety of spectroscopic techniques that enable detailed examination of the mineral surface. He will also study surface-controlled differential partitioning trends in dolomite, topaz and quartz. In general he hopes to develop an understanding of the principles governing the influence of mineral surfaces on the differential partitioning of trace elements in minerals.